Development of a Universally Accessible Electronic Television News Database

The Television News Archive of Vanderbilt University will establish a universally accessible electronic television news database, placing the Television News Index and Abstracts on the Vanderbilt Library system's mainframe computer, eventually to be exported to a universal database network. The Index and Abstracts provide access to all videotaped national network news broadcasts since August 5, 1968. They are the only means of access to all current collections of videotaped national news in the Vanderbilt News Archive, the Library of Congress, the National Archive, and other less comprehensive collections. The Index and Abstracts also provide valuable media events data that can and have been used independently without reference to videotapes. The electronic database will greatly enhance access to the wealth of television data contained in the Index and Abstracts and in videotaped news collections. Television research has attained the status of a fully developed area of social scientific inquiry, one essential to understanding contemporary society. The potential for future growth and development of such inquiry is enormous. The universally accessible electronic television news database will greatly enhance the likelihood that the potential will be realized, guaranteeing easy access for all scholars everywhere to data of fundamental importance to television research.